Molecular Connections: an Integrated Approach to the Life Sciences

Discipline: Biological Sciences (61)

Intellectual Merit: Students are doing research and inquiry-based laboratories in bioinformatics, cell biology, molecular population genetics, and protein biochemistry using new equipment added to laboratories in both introductory and linked advanced level courses. The revision adapts materials developed at the University of Wisconsin Whitewater (NSF 0311609), the California State University at Chico (NSF 0126618) and Washington and Lee University (NSF 0125282). The changes are being implemented by seven faculty members in the Biology and Chemistry Departments. They incorporate pedagogical approaches recommended by the National Research Council.

Broader Impacts: The introductory course is included within the Albion Step-Ahead Program, a program that aims to recruit and retain underrepresented students at Albion. To facilitate dissemination and broaden its scope, assessment of the project will determine how it impacts science and non-science majors, first-generation college students, women, students with documented disabilities, and under-represented minority students.